Industry Internship: Development of Computerized Numerically Controlled Spreading Machines and Advanced Control Algorithms for Fabric Spreading

The objective of the research is to develop Computer Numerical Control (CNC) Spreading Machines to enhance their versatility and performance and ultimately the productivity and competitiveness of the garment industry. This objective will be achieved by the development of a computer numerical controller for spreading machines as well as advanced control algorithms for fabric spreading. The computer numerical controller with a position feedback transducer will enable the implementation of the following functionalities: auto threading/rewinding, auto turntable rotation, auto tension feed compensator, auto roll unwinding system, auto edge alignment, auto lay height sensing elevator, and the flexibility of producing large number of different drop sizes with programmable lay length, ply height and step-laying. The intelligent learning control schemes taking advantage of the repetitiveness of the spreading process and accommodating the changing mass of the fabric roll will enable an increased spreading speed with precise ply length--higher productivity and less waste of fabric.